Cell Separation in Oscillating Electromagnetic Fields

In order to study cellular physiology and biochemistry of biological and physiological cells, it is important that the cells of interest be separated effectively from heterogeneous mixtures. Presently available separation techniques do not usually discriminate cells according to their physiological states or intracellular constituents. This proposal seeks to develop a novel separation technique (to separate cells on the basis of their physiological characteristics) based on the ability of the cells to react to applied electromagnetic fields. It is expected that the proposed technique will be fast and will exert little stress on the cells (in contrast to some of the pr3esently available techniques). The proposed technique would have a significant impact in the areas of genetic engineering and immunology. The principal investigator and his company (Biotechnologies and Experimental Research, Inc.) have very good expertise in the area of the proposed work and qualify for support under the Small Business Innovation Research Program. Support for Phase I (proof-of-concept) research, in the amount of $40,000 for six months for FY87 funds is recommended.